SSC: Harvey Mudd College Summer Science Institute

SSC-9353152 Harvey Mudd College Claremont, CA Tanenbaum, Samuel B "Harvey Mudd College Summer Science Institute" Harvey Mudd College request a three-year grant of $197,490 to establish the Harvey Mudd College Summer Science Institute, a commuter summer science program targeted to underrepresented students in grades 7 and 8 from the surrounding local school districts. The five week program will offer students the opportunity to explore five different science and engineering topics in-depth, and give them hands-on experience in highly motivating projects especially designed to excite the enthusiasm of junior high students. Students will also interact with representatives from industry and selected members of the Harvey Mudd faculty and student body. Follow-up activities will be organized during the academic year to further motivate the students to continue their studies of science and mathematics, and ultimately pursue careers in technical fields.